PAGES: Purdue Agricultural and Environmental Science Young Scholars Program

9552889 Oseto Purdue University seeks to provide a seven-week, summer residential, Young Scholars project in agricultural and environmental science for 25 students in grades 10, 11, and 12. The project will be held on the West Lafayette campus of Purdue University for students enrolled in schools in Indiana, Illinois, and Ohio. The project will provide students an opportunity to broaden their appreciation and knowledge of the scientific challenges offered by agriculture and natural resources disciplines through a combination of activities consisting of classroom lectures and discussions, field trips, and directed student research.